Studies of the Highest Energy Cosmic Rays with the Auger Observatory

This proposal deals with research activities that will lead to the detection of ultra-high energy cosmic rays to study their origin and identity. The PI's proposal will enable him to cover the following responsibilities:
1. Management, integration, and quality assurance of surface detector elements.
2. Implementation of detector trigger and calibration schemes and refine software for event reconstruction.
Funding is recommended at a slightly reduced level, a level that will enable the PI to fulfill his commitment at the rate AUGER is progressing.